Parallel Computing in the Undergraduate Curriculum

This project introduces undergraduate computer science students to parallel computing through coursework and laboratory experiences. The laboratory consists of an Intel model D3-4 hypercube connected to the University's MicroVAX II systems over a local area network. The programming languages Fortran, C and LISP are available for parallel algorithm development. Through the new course offerings in parallel computing, students study: parallel machine architectures, operating systems for parallel machines, languages and algorithms for parallelism. Through this project, students are given hands-on experience in an area that is gaining increasing importance in computing. This award is being matched by an equal sum from the grantee.